CPS: Medium: Vehicular Cyber-Physical Systems

The objective of this research is to develop technologies to improve
the efficiency and safety of the road transportation infrastructure.
The approach is to develop location-based vehicular services combining
on-board automotive computers, in-car devices, mobile phones, and
roadside monitoring/surveillance systems. The resulting vehicular
Cyber Physical Systems (CPS) can reduce travel times with smart
routing, save fuel and reduce carbon emissions by determining greener
routes and commute times, improve safety by detecting road hazards,
change driving behavior using smart tolling, and enable
measurement-based insurance plans that incentivize good driving.

This research develops distributed algorithms for predictive travel
delay modeling, feedback-based routing, and road hazard assessment.
It develops privacy-preserving protocols for capturing and analyzing
data and using it for tasks such as congestion-aware tolling. It also
develops a secure macro-tasking software run-time substrate to ensure
that algorithms can be programmed centrally without explicitly
programming each node separately, while ensuring that it is safe to
run third-party code. The research focuses on re-usable methods that
can benefit multiple vehicular services, and investigates which
lessons learned from this vehicular CPS effort generalize to other
situations.

Road transportation is a grand challenge problem for modern society,
which this research can help overcome. Automobile vendors, component
developers, and municipal authorities have all shown interest in deployment.
The education plan includes outreach to local K-12 students and a new
undergraduate course on transportation from a CPS perspective, which
will involve term projects using the data collected in the project